NSF/CBMS Regional Conference in the Mathematical Sciences - 'Environmental Statistics' - 6/26/01-6/30/01

The principal lecturer for this CBMS series on Environmental Statistics will be Richard Smith from the University of North Carolina, and the series will take place at the University of Washington, in conjunction with the National Research Center for Statistics and the Environment. The lectures will cover topics in geostatistics, nonstationary models, lattice models, spatio-temporal models, monitoring network design, time series, trend detection, and extreme values, with motivation for each topic drawn from environmental applications.